An Investigation of High vs. Low Literacy-Proficient Black Young Adults

This planning grant will be used to design research that will investigate the learning processes and strategies of Black young adults participating in literacy intervention programs. Those participants who successfully perform specific literacy tasks (high-literacy proficient adults) will be compared to participants who do not demonstrate competence on these tasks (low-literacy proficient adults). The research will involve comparisons of task characteristics, such as type of task and requirements for processing information, as well as learner characteristics, such as problem solving approach, errors made, and cognitive strategies used. Pilot data will demonstrate the feasibility and utility of the approach. Literacy tasks for inclusion in this research will be selected from the National Assessment of Educational Progress (NAEP) Young Adult Literacy Study conducted in 1985. The selection will be based on a content and error analysis of those tasks included in the NAEP assessment which differentiated high vs low proficiency in a national sample of Black young adults. The principal investigator, a well-trained recent Ph.D. in educational psychology, will also conduct a literature review in the fields of cognitive psychology, the psychology of reading, and adult literacy and education. This information will be synthesized to provide the theoretical basis for the research. This reseach has potential utility in designing instruction in literacy intervention programs.